NER: Electronic Nanostructures Based on Self-Assembled DNA Scaffolds: Toward Biochemical Sensing

0609288
Finkelstein
This research will impact three areas of future potential to nanoelectronics research:

i) Development of self-assembling DNA superstructures based on DNA "tiles" to expand recent
successes for the advancement of nanoelectronics goals.

ii) Chemical methods for the modification and conversion of DNA templates into active
electronic nanostructures, which have previously been hard/impossible to construct by
conventional methods.

iii) Physical characterization and measurement of the electronic properties of the nanostructures.